Seismic and Aseismic Stress in Southern California

9505811 JACKSON This research is to compute the incremental stress tensor in the upper crust of southern California as a function of time since 1850, and compare observed seismicity with the estimated stress increment at the time of the earthquake. Several recent developments make this possible to do more realistically than before: 1) a wealth of new geodetic and geologic data for southern California, 2) a model for calculating elastic stress accumulation in a faulted medium that has been adjusted to fit these new data, and 3) a catalog of moment tensors for all earthquakes with magnitude larger than 6 since 1850. This research is a component of the National Earthquake Hazard Reduction Program. ***